Aerosol and Atmospheric Optics: Visibility and Air Pollution Conference; Whitefish, MT; September 24-28, 2012

This award supports a specialty conference entitled "Aerosol and Atmospheric Optics: Visibility and Air Pollution" to be held from 24 to 28 September 2012 in Whitefish, Montana. The conference will be convened under the auspices of the Air and Waste Management Association. The primary objective of this meeting is to provide a technical forum on advances in the scientific understanding of the effects of atmospheric aerosols on urban-, regional-, continental-, and global-scale haze and radiation balance. Specific sessions will focus on emission sources, atmospheric conditions, and aerosol characteristics associated with haze and urban visibility; regional haze; climate forcing; innovative aerosol, haze, and radiation-balance monitoring assessments; and modeling methods.

The broader impacts of this project include advancing scientific understanding of the influences of aerosols on visibility, radiative transfer, and climate. In addition, the conference will bring together established researchers and early career scientists, providing invaluable opportunities for professional interactions in a focused and productive forum. The award will support transportation, registration, and/or per diem expenses for young investigators, students, and participants from underrepresented groups who would be unable to attend without financial assistance.